Approximation of the Global Attractors of Evolution Equations

The investigator and his colleague atudy the computation of
global attractors and invariant manifolds for dissipative partial
differential equations. Global attractors are detected by
interpolation of analytic (in complex time) rather than direct
simulations. The performance of this approach is connected to
the growth rate of solutions backward in time. Computations are
carried out to determine if a set of solutions with a particular
rate is in fact a manifold. Adaptations of a succesful
contraction mapping algorthm for inertial manifolds are made for
center manifolds and foliations. Specific applications are made
to physical models including the Camassa-Holm,
Kuramoto-Sivashinsky and Navier-Stokes equations, including
issues from turbulence theory.
This project concerns a variety of mathematical equations
describing such physical phenomena as combustion, fluid flow, and
turbulence. Part of the effort is to develop a method to
reliably determine whether a particular computed solution
represents permanent or merely temporary behavior. Another
concerns the visualization of geometric objects corresponding to
distinguished sets of solutions, which determine the ultimate
behavior of the physical system. Though the work is carried out
for several specific, physically significant equations, it is
general enough to extend, in a natural way, to many others of a
similar form, including some modeling the weather.